Theoretical Nuclear Physics

This project continues theoretical studies incorporating relativistic effects in nucleon physics. The two main programs are relativistic nuclear hamiltonian dynamics (Keister) and the quark structure of hadrons. Specific topics to be studied include nucleon Compton scattering and a light-cone model for inclusive nuclear reactions.